Bioremediation Technology in the Engineering Curriculum: A Module-Based Multimedia Approach

Abstract: EEC-9527535, Colorado State University, PI-Dr. Kenneth Reardon: This award provides funding to Colorado State University for support of a Combined Research Curriculum Development Program entitled, "Bioremediation Technology in the Engineering Curriculum: A Module Based Multimedia Approach." The CRCD program emphasizes the need to incorporate exciting research advances in important technology areas into the upper level undergraduate and graduate engineering curricula and stimulates faculty researchers to place renewed, equal value on quality education and curriculum development. This three year program will integrate bioremediation technology concepts into undergraduate and graduate engineering courses via eight modules containing laboratory, video, mini lecture, and/or case study components. The content of these modules will be enhanced by inclusion of closely related research being performed by the curriculum development team and by field experience provided by a panel of practicing bioremediation engineers.